Support for the 2017 IEEE Visualization Conference (VIS) Doctoral Colloquium

Visualization, or the use of interactive graphic representations to support data analysis and understanding, has become an integral part in a wide array of application areas. This grant provides support for about 18 U.S.-based graduate students to participate in the Doctoral Colloquium to be held in conjunction with the IEEE Visualization Conference (VIS 2017), October 1- 6, 2017, Phoenix, AZ (http://ieeevis.org/). The Doctoral Colloquium (DC) was initiated in 2006, and has been highly successful in providing mentorship opportunities from senior researchers to new ones. DC provides an opportunity to the students to present their doctoral dissertation research and receive feedback from a key group of their peer professionals that will enable them to further shape and improve their work. The VIS Doctoral Colloquium brings together the most promising of the next generation of visualization researchers. This event allows the participants to create a professional network both among themselves and with senior researchers. This professional network plays a major role in their professional and educational career development. Since the students and mentors are a diverse group on several dimensions (nationality, gender, ethnicity, scientific discipline, and research specialization), the students' horizons are broadened at a critical stage in their professional development. Supporting participation of U.S. students in DC VIS 2017 is important for the development of researchers, practitioners and educators in the important area of visual analytics.

IEEE VIS (formerly known as IEEE VisWeek) is the premier forum for visualization advances in science and engineering for academia, government, and industry, bringing together researchers and practitioners with a shared interest in techniques, tools, and technology for data analysis. VIS 2017 will take place in Phoenix, Arizona, during October 1-6. The event is composed of three main conferences: the 28th Annual IEEE Scientific Visualization Conference (SciVis), the 23rd Annual IEEE Information Visualization Conference (InfoVis), and the 12th Annual IEEE Visual Analytics Science and Technology Conference (VAST). It will also include the 14th International Symposium on Visualization for Cyber Security (VizSec), the 7th Symposium on Large Data Analysis and Visualization (LDAV), and the 3rd Symposium on Visualization on Data Science (VDS). Papers in the InfoVis conference are rigorously refereed and are published in a special conference issue of IEEE Transactions of Visualization and Computer Graphics (TVCG). Select papers from the proceedings of the SciVis and VAST conferences arealso published in IEEE TVCG, while the remaining proceedings papers are published by the IEEE. Student research will be disseminated via extended abstracts published in the VIS 2017 Extended Abstracts.